Theoretical Problems in Condensed Matter and Statistical Physics

Theoretical research will be done on a wide range of topics in condensed matter theory including quantum antiferromagnets with impurities, the properties of flux line liquids, anyon theories of superconductivity, the physics of red blood cells and polymerized membranes with disorder, the behavior of directed polymer melts, electrons in strong magnetic fields, transport in disordered systems, and spin glasses. %%%